Ames Workshop on Particle Systems

A Workshop on Particle Systems will be held at Iowa State University on April 28-29, 2001. The topics covered will include hydrodynamic limits, tagged particle systems, and connections with random matrices. This grant is to assist junior researchers in attending the conference.